Quaternary Codes and Connections with Binary Codes, Sequences and Lattices

9305017 Kumar The nonlinear Kerdock and Preparata codes have been something of an enigma in coding theory since they are both Hamming distance invariant and have weight enumerators that are dual under the MacWilliams transform just as if they were dual linear codes. Recent research by the author and other researchers has provided an explanation for this phenomenon, namely that the two nonlinear binary codes are projections under the Gray mapping of two quaternary codes that are linear and which are in fact, duals! The connection with quaternary codes has brought up a whole host of interesting questions relating to linear quaternary codes, linear and nonlinear binary codes, sequences and lattices. In the research project, such questions are being investigated. It is expected that the research will have both practical and theoretical benefits. ***